Spectroscopic and Interferometric Studies of Middle Atmosphere Dynamics and Particle Precipitation Patterns Over the South Pole

Abstract 9614158 Sivjee This project maintains an infrared spectrophotometer, an eight channel photon counting photometer and an infrared Michelson interferometer at South Pole, Antarctica to study the dynamics and chemistry of the upper atmosphere. By measuring the variations in the brightness and temperature of airglow band emissions it is possible to detect planetary, gravity and tidal waves. The horizontal wave structures are studied by looking in several directions while making these measurements at several wavelengths, which come from different heights in the atmosphere, provides information on the vertical extent of the wave activity. Additionally, viewing the different altitude auroral emissions with the spectrophotometer is providing insight into the nature of the sources of the auroal precipitating electrons and how these different sources vary as a function of time. ***